Disorder and Correlations in Novel Two-Dimensional Systems

The main goal is a quantitative understanding of the effects of disorder and electron-electron interactions on the transport properties of electrons sprayed on to solid hydrogen. The evolution of single-electron localization effects into the disordered-Wigner-Crystal state will be studied. A Second area of study is the nature of superfluidity on disordered surfaces that are progressively smoothed by coating with hydrogen. Reducing the dimensionality of a system usually introduces profound changes in its character and behavior. Studies of such changes enrich our understanding of quantum mechanics and condensed-matter physics.